Modified Eigenvalue Problems, with Applicatin to Structural Dynamic Re-Analysis on Parallel Computers

This research project will focus on the efficient solution methods for the modified eigenvalue problem, with application to dynamic re- analysis of structures on parallel computing environments. The following are the specific task: 1. parallel implementation of solvers for a modified system oflinear equations: 2. evaluating the applicability of subspace iteration and Lanczos methods for dynamic reanalysis; 3. study the feasibility of low rank modification methods for some (not all) eigenvalues. The research will be directed towards the development of practical, effective methods that can be used in solving the modified eignevalue problems arising from structural dynamic re-analysis, which require only a few representative natural frequencies and modal shapes of a structural system. Particular attention will be given to developing parallel dynamic solution procedures that are suitable for parallel MIMD computer.